Applications of Lie-Transform Methods in Plasma Physics

Brizard
The investigator develops and analyzes low-frequency plasma
kinetic and fluid models for studying the long-time-scale
transport processes and global magnetohydrodynamic behavior of
strongly magnetized imhomogeneous plasmas. He uses Lie transform
methods to formulate the models. This provides certain technical
advantages, both analytically and computationally, in exposing
important features of global nonlinear plasma dynamics.
Astrophysical plasmas, space plasmas, and "laboratory"
plasmas seen in magnetic and inertial confinement plasma systems
share certain fundamental properties that are not well
understood. In part this is because a plasma consists of a great
many charged particles in motion, and the plasma's collective
behavior is the result of interactions between all these
particles. These interactions take place on very small length
scales and time scales, and show themselves on larger scales. The
investigator develops formal methods to produce effective
descriptions of the behavior of plasmas across multiple scales.
This leads to a better understanding of fundamental properties of
plasmas.